Microcomputer Based Laboratory in Psychology

Twelve IBM compatible computers are being procured. These computers are used in five undergraduate laboratories: Human Learning and Memory, The Psychology of Learning, Perception, Social Psychology, and Tests and Measurements. They are also used in statistics recitations, and by students conducting independent research projects. The technical capabilities of these computers, and the availability of off-the-shelf software, allows us to develop new laboratories and instructional modules, that cannot currently be developed. The institution is matching the NSF grant with an equal amount of funds.